MSP Assessments

This proposal seeks funding to design a coordinated system of student assessment resources and technical assistance for addressing the assessment needs of the MSPs. The design study has four goals: 1) To identify the student assessment needs of MSP programs and classrooms through a survey of assessments the MSPs plan to use, their current approaches to assessment, and their needs for additional forms of assessment and technical assistance; 2) To design an assessment resource management system (ARMS) that takes advantage of the affordances of technology to serve the MSPs nationwide by supporting access, use, customization and development of a range of appropriate assessments for MSP programs and classrooms; 3) To plan the development of new assessment forms in mathematics and science, some of which may be technologically-supported; and 4) To design a longitudinal study of the impact of MSPs on assessment practice at the classroom, school, district and state level.